Mathematical Sciences: Research in Geometric Analysis

The research involves the continued study of the geometry of manifolds of special holonomy and the theory of characteristic currents associated with a singular connection. The techniques are developed from significant progress attained in previous research concerning calibrated geometries on classes of Riemannian manifolds.